Urban Science Transition to Teaching Project

Demographic studies show a severe shortage of qualified mathematics and science teachers throughout the United States. At the same time there are relatively untapped pools of prospective teachers particularly among scientifically competent individuals who will make a career change at mid life either because they wish to do so or because their employment must be terminated. This project will develop an innovative and important model for the preparation of science teachers for middle school teaching especially in urban areas where the need is especially great. The California State University System has already begun such a program in San Francisco. Under this grant the program will be improved and evaluated. The programmatic model will also be moved to one or to Cal. State institutions in the Los Angeles area. The mid-life prospective teachers will receive single subject credentials for middle school teaching in California. Their programs will involve varying amounts of cooperation from former employers and from urban school districts. Some will undergo most of the program while still employed by their long term employer. The various forms of the program model will be carefully evaluated. Highly competent and professional science and mathematics teachers are especially needed in the middle grades (5-9). It is during these years that students form important and fundamental attitudes toward mathematics and science and skills in those fields that strongly influence subsequent careers and literacy. Unfortunately, many middle school students receive very poor experiences in math and science and negative attitudes develop early that influence many individuals throughout their entire lives. This is especially true for urban children whose culture, language, and failure orientation are special barriers to growth and development in science. This project is one attempt to respond to these very important needs.